Presidential Faculty Fellow Award: A Multidisciplinary Approach to IC Process Modeling Using the SUPREM-IV ModelingTool

Law This multidisciplinary research focuses on the development of silicon models for point defect behavior, which are vital to understanding dopant diffusion. Models are being developed and parameterized for the effect of silicidation and stress on point defect kinetics. These models are then implemented in SUPREM-IV, a standard integrated circuit process modeling tool that utilizes advanced finite element techniques. This is a Presidential Faculty Fellow (PFF) Award initially awarded in Fiscal Year 1992.